1990 Gordon Conference on Photonuclear Reactions; Tilton, New Hampshire; August 6-10, 1990

This proposal is for funds to partially defray expenses for graduate students, post docs, and some foreign visitors, so that they can attend the Gordon Research Conference on Photonuclear Reactions. This conference is one in a continuous, biennial series spanning nearly 30 years. It is the most important conference in electromagnetic nuclear physics, a top priority sub-discipline within nuclear science. This years conference deals with many forefront issues that will be attacked by the new facilities under construction in the US and abroad including among other subjects new few-body system results, spin physics, coincidence studies, and quark effects in nuclei.